High-Resolution Measurements of the Dynamics of the Troposphere and Lower Stratosphere Using Spatial and Frequency Domain Interferometry

This is intended to be the second year of a previous two-year continuing grant (PI: Robert Palmer, Institution: Clemson University); the grant has been transferred to the University of Nebraska. The objective of this work is the use of the MU radar (49.5 MHz) in Kyoto, Japan, configured as an interferometer, to investigate those processes which appear to cause a "tilting" of refractive index structures. Such tilted layers produce differences in the measured vertical velocity using Doppler techniques. By using the MU radar as both a Doppler device and an interferometer, these thin scattering layers can be observed simultaneously, thus producing independent measurements of the entire field of motion.